Quantum Dynamics in Particle--Solid Interactions

Time dependent quantum techniques are applied to the calculation of the interation of atoms and ions with metal and insulator surfaces. The results will lead to a quantitative understanding of charge transfer and hybridization in surface particle interactions.